Thermal Tomography using Electron Resonance (ESR) Techniques

A noninvasive technique for measuring the temperature field inside three-dimensional living tissue using tomographic methods based on electron spin resonance (ESR) spectroscopy of nitroxide stable free radicals will be developed. The studies will examine temperature variations likely to be encountered in experiments and in clinical applications involving hyperthermia in the mammalian body. The experiment consists of three major parts: First, detailed data on temperature dependent spectra of appropriate nitroxides will be obtained in model systems, such as solutions and blood: Second, the spectra will be reexamined in the tissues of living, anesthetized mice with the additional objective of localizing the signal to specified, small additional objective of localizing the signal to specified, small volumes. Third, preliminary work will be done on the development of tomographic applicable to this method. The most significant result of this research would be a breakthrough in noninvasive temperature measurement techniques. A major shortcoming of current hyperthermia procedures is the uncertainty of the temperature distribution in the region of the application of the thermal treatment. The primary aim is to develop an effective and reasonably economical technique for in vivo uses. Variations of the technique, however, could be developed for other uses as well. Thus, ESR based thermal tomography would become a significant new component in the art and science of heat transfer.